ARI: Development of Specialized Communications and Terminal Equipment for Research in Information Technology and Education Technology

9601670 Garcia, Oscar N. Jean, Jack Wright State University Academic Research Infrastructure: Development of Specialized Communications and Terminal Equipment for Research in Information Technology and Education Technology This Academic Research Infrastructure award supports the acquisition of a networked human factors experimental facility. The projects supported by this equipment include: 1. Multimodal human-computer dialogue. 2. Computer sensor instrumentation and their integration. 3. Accessibility to large multimodal databases by novel query methodologies. 4. Experimentation with various virtual environments in collaboration with psychologists and educational researchers. 5. Experimentation and development of software engineering environments to support human-computer interaction software development and usability assessment.